Autonomic Control of Urinary Bladder and Large Intestine

Dr. De Groat uses a multidisciplinary approach to examine the pathways that are involved in the reflex control of the urinary tract and large intestine. His studies are grouped into three major categories: (1) the plasticity of synapses following neural injury, (2) characterization of the neurotransmitters, and (3) the role of neuropeptides in the regulation of urinary bladder activity. Past research supported by the National Science Foundation has expanded our knowledge of the neural control of excretory function and at the same time provided information which has had and will continue to have a broad impact on several areas of neuroscience. With funds provided by the Accomplishment-Based Renewal, Dr. De Groat will continue to explore the mechanisms underlying the recovery of bladder function following spinal and peripheral nerve root injury. One goal of these studies is to find new pharmacological approaches particularly in regard to peptidergic systems for the treatment of autonomic disorders related to traumatic injury or disease. The work of Dr. De Groat is an excellent example of where basic research to understand the central and peripheral mechanisms which coordinate sympathetic, parasympathetic and somatic inputs to the excretory organs may lead to new therapeutic approaches for bladder dysfunction.